A PCK Summit: Current and Future Research Directions

This project seeks to advance understandings of teacher professional knowledge in science. It focuses on bringing greater clarity to the pedagogical content knowledge (PCK) construct, the model of professional knowledge in which PCK is embedded, and its implications for enhancing teacher practice and student learning.

Thirty participants from eight countries will take on the task of contributing to and/or completing this synthesis through a summit and follow-up activities. A set of recommendations will be made to guide future research aimed at advancing this field of study.

This is a very worthy project in science education research. It is innovative and brings together world-wide experts in science education to develop products that will communicate refined models for teacher professional knowledge. The project draws on past NSF-supported research and builds on a highly diverse body of literature. It yields a wealth of information that could lead to a commonly accepted agreement among science education researchers about PCK and articulates future directions for collaborative research as well as instrument development and/or refinement.